Single-Particle Mass Spectroscopy of Ice Nucleating Particles

This project will analyze ice nucleating particles in real-time for chemical composition using single-particle mass spectrometry. A continuous flow ice thermal gradient diffusion chamber (CFDC) will be coupled to the NOAA PALMS (Particle Analysis by Laser Mass Spectrometry) instrument and deployed in the field. This research will provide an assessment of the role of various aerosol types as ice nuclei for cirrus cloud formation, and the role of certain constituents as promoters or inhibitors of ice formation. The results of this project are likely to have broad societal impacts by providing new insights into the mechanisms for cloud formation, a topic critical for better understanding climate change.